RR:CISE Instrumentation: Remote Research Capability with Hardware-in-the-loop Simulators for Mechatronic Systems

This project from an EPSCoR state, developing a hardware-in-the-loop simulator (HILS) for mechatronic systems including robotics and hybrid electric vehicles, services 2 on-going projects and two new ones.
Remotely controllable PUMA 560 Robot,
Modeling and Simulation of HEV's,
Remotely Controllable HILS for direct drive robot configuration, and
Remotely Controllable HILS for geared robot configuration.
The projects involve the remote control of an open architecture robot. PUMA, a staple learning robot, services introductory robotics. The project allows and encourages conducting different remote experiments.

Broader Impact: The platform services the wider Alaska community allowing hands-on work in courses that are currently limited to only theory, thus providing strong outreach educational opportunities.